Integrated quantum photonics using van der Waals materials

Technologies that rely on and exploit the quantum properties of light and matter are touted as the next phase
of the modern industrial revolution. Light has become the preferred medium for information transfer in
quantum technologies due to its high speed and exceptional noise properties, with single photons acting as
the most basic building blocks. However, the realization of robust, device-compatible, room-temperature
single photon sources that can be activated and controlled on demand has been a major hurdle. Although
there have been different material systems that have shown single photon emission, they operate at low
temperature or at incompatible wavelengths, and are often hard to integrate with conventional photonic
materials or CMOS technology. To address this challenge, this project aims to develop single photon
emitters based on cavity-coupled van der Waals (vdW) materials. Specifically, the program will focus on
hexagonal boron nitride, a wide bandgap semiconductor that can host optically active point defects with
emission in the visible and near infra-red. Combining defect engineering and "pick-and-place" techniques,
the project will develop a range of light-confining hybrid structures designed to enhance light collection
and light emission from single photon emitters as well as increase the strength of light-matter interaction.
The overarching goal is to develop the key building blocks for realizing quantum photonic devices based
on vdW materials.
Technical Abstract:
The development of quantum photonic technologies that can operate at elevated temperatures, are CMOS
compatible, and can be integrated with conventional photonics is highly desirable. This project addresses
precisely this need through the use of monolayer or few-layer vdW materials integrated with silicon
nitride photonic platforms where we exploit the unique strengths of the two material systems. vdW
materials are a highly attractive platform for active components in quantum photonics due their large
light-mater interaction strength, compatibility with a variety of substrates, and pick-and-place fabrication
techniques. In particular, hexagonal boron nitride has a wide bandgap (6 eV), which allows for a broadly
accessible spectral range and mid gap defect states. Furthermore, owing to the few-layer vdW structure,
these systems show extreme susceptibility to strain and the dielectric environment, which will be
exploited to control defect activation and integration with nanophotonic structures such as microresonators
and waveguides. Silicon nitride, already recognized as an excellent material for passive
photonic devices due to its low loss and mature fabrication protocols will form the platform for realizing
the quantum photonic chips. Specific program goals include: (i) Deterministic engineering of defect
states in hBN for single photon emission, and (ii) Integration of emitters into micro-resonators and hybrid
cavity systems for enhancing spontaneous emission and achieving the strong coupling regime.
The program will help train students from diverse backgrounds in the emerging interdisciplinary field of
quantum optoelectronics. A highlight among the planned outreach activities is a hands-on quantum
technologies workshop for undergraduate students at City College.